Computer Experiments in Differential Equations

9353946 Borrelli This project is continuing the activities of an ongoing project using computer experiments in differential equations. The goals of the project include (a) development of expertise in the use of interactive computer experiments in a laboratory setting, (b) opportunity for creation of ordinary differential equation exercises for classroom and laboratory use, and (c) networking of faculty teaching ordinary differential equations. In particular, this award is adding Stetson University to the differential equations consortia consisting of the following six institutions: Cornell University, Harvey Mudd College, St. Olaf College, West Valley College, Rensselaer Polytechnic Institute, and Washington State University. Differential equation workshops are being held during the summer of 1994 at Rensselaer Polytechnic Institute and West Valley College and at Stetson University during the summer of 1995. ***